The Co-evolution of Multiparameter Radar and Electrical Storm Structures

The objective of this research is the structure and evolution of water substance in convective clouds and the cognate development of electric fields and Maxwell currents near the earth's surface, measured during the CaPE field experiment at the Kennedy Space Center, July - August 1991.